1995 Aspen Winter Condensed Matter Conference: The Physics of Reduced Dimensionality Systems; Aspen Center for Physics; Aspen, Colorado

9502086 Appelquist The 1995 Aspen Winter Conference will devote one week to condensed matter physics. The focus will be on the physics of reduced dimensionality systems. The conference will be interdisciplinary, and will bring together leading scientists from academia and industry to critically assess the current level knowledge and what remains to be learned in the future. NSF support will provide financial assistance to graduate students and young scientists. % % % The 1995 Aspen Winter Conference will devote one week to condensed matter physics. The focus will be on the Physics of reduced dimensionality systems. The conference will be interdisciplinary, and will bring together leading scientists from academia and industry to critically assess the current level knowledge and what remains to be learned in the future. NSF support will provide financial assistance to graduate students and young scientists. ***